Collaborative Research: Assessing Secondary Teachers' Algebraic Habits of Mind

Boston University, Education Development Center, Inc., and St. Olaf College are collaborating on Assessing Secondary Teachers' Algebraic Habits of Mind (ASTAHM) to develop instruments to assess secondary teachers' Mathematical Habits of Mind (MHoM). These habits bring parsimony, focus, and coherence to teachers' mathematical thinking and, in turn, to their work with students. MHoM is a critical component of mathematical knowledge for teaching at the secondary level. Recognizing the need for a scientific approach to investigate the ways in which MHoM is an indicator of teacher effectiveness, the partnership is researching the following questions:

1. How do teachers who engage MHoM when doing mathematics for themselves also bring MHoM to their teaching practice?
2. How are teachers' engagement with MHoM and their use of these habits in teaching related to student understanding and achievement?

To investigate these questions, ASTAHM is developing two instruments: a paper and pencil (P&P) assessment and an observation protocol that measure teachers' knowledge and classroom use, respectively, of MHoM.

The work is being conducted in two phases: (1) an instrument-refinement and learning phase, and (2) an instrument-testing and research phase. Objectives of Phase 1 are to gather data to refine the project's existing instruments and to learn about the bridge factors that impact the relationship between teachers' knowledge and classroom use of MHoM. Specific research activities include: administering the pilot P&P assessment to 40 teachers, videotaping Algebra instructions of 8 teachers, performing initial testing and refinement of the instruments, and using the data to analyze the bridge factors. Phase 2 is a large-scale study involving field-testing the P&P assessment with 200 teachers, videotaping 20 teachers and studying them using the observation protocol, collecting achievement data from 3000 students, and checking P&P content validity with 200 mathematicians. With these validated instruments in hand, the project will then conduct an investigation into the above research questions. Lesley University's Program Evaluation and Research Group (PERG) is the external evaluator. PERG is assessing ASTAHM's overall success in developing valid and reliable instruments to investigate the extent to which a relationship exists between teachers' MHoM and their classroom practice, as well as student achievement. Evaluators are also investigating whether users' coding guides for both instruments enable field-testers to effectively use and adequately score them.

This work fits into a larger research agenda with the ultimate goal of understanding the connections between secondary teachers' mathematical knowledge for teaching and secondary students' mathematical understanding and achievement. The MHoM construct is closely aligned with the Common Core State Standards-Mathematics (CCSS-M); especially its Standards for Mathematical Practice. For example, both place importance on seeking and using mathematical structure. Thus the instruments this project produces can act as pre- and post-measures of the effectiveness of professional development programs in preparing teachers to implement the CCSS-M. Mathematics teacher knowledge at the secondary level is an understudied field. Through analyses of the practices and habits of mind that teachers bring to their work, ASTAHM is developing instruments that can be used to shed light on effective secondary teaching.